Guanylate Cyclases in the Neurvous System

9808335 GOY One feature of the brain that sets it apart from all other organs is its ability to process, store, and retrieve large amounts of information. In order to do this, it maintains a set of intercellular connections (synapses) that allow individual brain cells (neurons) to communicate with each other. Neurons must initially establish their synaptic connections as the brain is forming during embryogenesis. Subsequently, synapses are modified throughout life as the brain takes in and stores new information, and they are reorganized in response to accidental damage, for example after a stroke or a head injury, as functional capacities are at least partially restored in the brain. The way in which neurons generate synaptic connections during development, regulate their strength during adult life, and rewire them after an injury are among the most-studied and least-understood mechanisms in the field of neuroscience. Recently, it has become apparent that a specific kind of intracellular signaling molecule, called cyclic GMP, helps neurons regulate the strength of synaptic connections -- both in the immature brain, when the survival or elimination of specific synapses is specified, and in the mature brain, when learning and memory require changes in synaptic efficacy. This leads to an obvious question: if cyclic GMP controls synaptic strength, then what controls cyclic GMP? Dr. Goy's laboratory studies mechanisms that regulate cyclic GMP metabolism in a simple nervous system, the ventral nerve cord of the lobster, Homarus americanus. This neuronal network (an interconnected chain of 15 ganglia, each containing from thousands to tens of thousands of neurons) provides many opportunities to study the way that mechanisms controlling cyclic GMP metabolism can produce specific changes in synaptic organization. Results from this project will generate and test specific hypotheses about how cyclic GMP controls synaptogenesis and synaptic reorganization in a simple animal. In turn, this will lead to testable hypotheses about synapse formation in general.